Mathematical Sciences: Travel Grants for 1995 Int. Congress of Logic, Methodology and Philosophy of Science

9504267 Henson The Association for Symbolic Logic will administer travel grants to support the participation of invited speakers, delegates, authors of contributed papers and other participants from the United States in the Xth International Congress of Logic, Methodology, and Philosophy of Science. This Congress will be held August 19-25, 1995 in Florence, Italy. Applications to the ASL have been made for these funds; the selection of recipients of the 12 awards is to be done by the Executive Committee of the ASL. ***